An Econometric Analysis of Charitable Giving in the Federal Income Tax

The effect of the federal income tax system on charitable contributions has been the subject of considerable interest. Several recent changes in federal tax law have affected that deduction. This project outlines an econometric study of the effect of the federal income tax on charitable giving which addresses two specification issues in past work. First, the level of other deductions has been held constant in earlier studies, but will be allowed to vary here. In general, the price and income elasticities of such conditional demand functions are not the same as those that obtain when other deductions are allowed to be endogenous. For tax policy purposes, the elasticities from the unconditional demand functions are the most relevant because a change in the tax price for charitable giving may change the level of other deductions as well. Although the treatment of other deductions as endogenous leads to an identification problem, using charitable donations from non-itemizers (which was allowed in the early 1980s), will enable separate price elasticities for charitable giving and other deductions to be obtained. The second specification issue is the endogeneity of the itemization decision. This involves a model incorporating the choice of other deductions as well, for the itemization decision is based upon the level of all deductions. This creates some estimation problems - a nonconvex kink in the budget set and, conditional on itemization, the tax price of the deductible goods depends on the sum of the expenditures on these goods. This will be dealt with by extending the piecewise linear budget constraint econometric methodology used elsewhere. Estimates from this model using the 1984 SOI file of federal tax returns will be compared with those obtained from the simpler model. Finally, the parameter estimates will be used to simulate the effects of a wide variety of tax policy changes, including the effect of the 1986 Tax Reform Act and other possible reforms, on the level of deductions, the percentage of returns with itemized deductions and the level of federal tax revenue.